Colorado State University Young Scholars Program

The Colorado State University will initiate a four-week, residential Young Scholars project in the Plant and Soil Sciences for 25 students entering grade 12. University faculty members and cooperating federal scientists will deliver lectures, lead discussions, conduct field trips and provide students with research experiences. Follow-up activities include the use of a newsletter to exchange information among the student participants and to communicate with their science teachers. Students will share the results of their research projects by presenting poster papers.